A General Framework for Hard-Real-Time Application System Design

PROPOSAL NUMBER: CCR-9972105

TITLE: A General Framework for Hard-Real-Time Application System Design

PI: Sanjoy K Baruah

The rate-monotonic analysis (RMA) methodology is a powerful and popular formal
methodology for the design, analysis, and implementation of hard-real-time
computer application systems. This project proposes to address certain
shortcomings of RMA --- its restrictive task model, and the limited options
available in the methodology for overcoming resource-sharing bottlenecks.
More
specifically, the goals of this project will be:

--- designing new abstract models of real-time tasks that may more accurately
reflect important properties of application systems, and identifying rules for
mapping application systems onto the most appropriate models.

--- analysing various task models in order to enhance our understanding of
what
intrinsic properties render a model infeasible from a static-priority
feasibility analysis point of view, and identifying very general classes of
tractable models.

--- determining methods (algorithms/ heuristics) for assigning appropriate
priorities to tasks specified in these general models.

--- designing algorithms for overcoming resource-sharing bottlenecks, by
obtaining a deeper understanding of the nature of typical shared resources and
by exploiting their unique characteristics, and

--- building software that both validates the usefulness of the theoretical
results, and makes these results available to the system designer.